Mathematical Sciences: The Topology of Algebraic Varieties

9627358 MacPherson This award provides partial support for a graduate student in the mathematics department at Princeton University, working on a Ph.D. thesis under the direction of Robert D. MacPherson, a permanent member of the Institute for Advanced Study, Princeton, N.J. MacPherson's current research covers a wide area, including the geometry of symmetric spaces in relation to Langlands theory, combinatorial topology, perverse sheaves and toric varieties. He has had a large number of successful students. ***